Development of the INTECOL Science Program

This proposal is for renewed support for the International Association for Ecology (INTECOL). The funds requested will support the INTECOL Secretariat (office of the President (an American), staff officer/editor, and a secretary). The office will continue to be in charge of publications during the grant period. In addition, the Secretariat will be responsible for organizing the 5th Congress of INTECOL which will be held in Japan in l990.